Novel Electron Transport Studies of Metallic Multilayers at Low Temperatures

It is proposed to continue research on the Giant Magnetoresistance (GMR) in multilayers of a ferromagnetic (F) and a nonmagnetic (N) metal; and interface and multilayer resistances involving F metals, N metals and superconductors.